Euler Characteristics,Qquadratic Invariants, Arithmetic Groups and Lifting Problems

This proposal is about several topics in arithmetic geometry.
Riemann Roch formulas for coherent Euler characteristics will
be studied, with applications to Iwasawa theory and capacity theory.
The proposal also has to do with quadratic invariants of coherent sheaves
and of unit groups. Various methods from number theory and
algebraic geometry will be used to show that arithmetic groups
can be generated by elements of small height or by subgroups of small rank. Finally,
the inverse problem for deformation rings will be considered,
as well as the liftability of group actions on curves in positive
characteristic.

This proposal is about symmetry and its applications in number
theory and arithmetic geometry. The exploitation of symmetry
to understand the solutions of equations and the geometry
of objects has been a basic theme in mathematics. In this
proposal, symmetry will be used to show that complicated algebraic
systems arising from number theory and geometry can in many
cases be described in simple and compact ways. Symmetries will also be used to distinguish when such systems are fundamentally different from one another and when they can or cannot be extended beyond their original scope.